Gas Phase and Related Studies of Main Group Elements

Several areas of research in organosilicon, organoaluminum, and organoboron chemistry will be pursued, which include: (1) Gas-phase ion-molecule chemistry to prepare and study the reactivity and thermochemistry of a number of low-, normal-, and high-valent silicon, aluminum, and boron containing anions. Triple quadrupole collisionally-induced dissociation (CID) will be used to study thermochemical parameters. (2) Periodic Table relationships and substituent effects of these anions will be investigated. (3) Relationships between the anions and their corresponding neutrals, which are in general species of enhanced reactivity and of theoretical interest, will be pursued. (4) Condensed-phase studies will be continued to prepare silicon-containing cages in order to probe inside-outside substituent effects and to generate silicon- carbon bonds from organoboranes. %%% This grant from the Organic Dynamics Program supports the continuing work of Professor Robert Damrauer at the University of Colorado at Denver. The major thrust of the research will be a study of molecules containing silicon, aluminum, and boron in the gas-phase. The chemistry, thermochemistry, and acidity of these highly reactive species will be determined. Comparisons of these properties will be made between the silicon, aluminum, and boron molecules, based on the Periodic Table of elemental properties. These studies will shed light on technical aspects of the manufacture of electronic components. Another aspect of the research will be directed to the study of silicon-containing cage molecules and the generation of silicon-carbon bonds in the condensed-phase.